Resolving Inner Core Structure Using Body Wave and Normal Mode Seismic Data

This research is a continuation of a project to determine the structure of the earth's inner core. Seismic constraints on inner-core properties include the velocity, density; and Q structure, and the recent suggestions of heterogeneity and/or anisotropy. Some of these properties are not well determined and there have been discrepancies between models obtained from body wave studies and those from normal modes. These issues will be addressed by systematically examining a variety of data sets which constrain inner-core structure, including ISC travel times, GDSN waveforms, and free oscillation spectra. The aim is to find the simplest inner-core models consistent with the data, and estimate the resolution associated with these models.